Student Travel Support for the 16th ACM SIGPLAN Annual Symposium on Principles and Practice of Parallel Programming (PPoPP 2011)

This proposal requests NSF support to assist students in attending the 16th ACMSIGPLAN Annual Symposium on Principles and Practice of Parallel Programming (PPoPP 2011). PPoPP is the premier venue for leading work on all aspects of parallel programming, including foundational and theoretical aspects, techniques, tools, and practical experiences. The symposium covers work on concurrent and parallel systems (multicore, multithreaded, heterogeneous, clustered systems, distributed systems, and large scale machines).
This support will broaden participation in PPoPP by subsidizing the travel for participants who might not otherwise travel to attend PPoPP. The funds will be used solely to provide travel support for students from US universities.